Student travel funds for the 37th IEEE Conference on Decision and Control in Tampa, Florida, December 16-18, 1998

ECS-9810048 Bodson The project will provide funds for students to travel to the 37th IEEE Conference on Decision and Control, which will be held on December 16-18, 1998 in Tampa, Florida. The goal is to attract engineering students to the field of control systems, and to give the opportunity to students who have chosen control systems as a specialty to be informed about the most recent developments in control systems theory and practice.